CRI: Building Human Infrastructure: A Pipeline for Minority Preparedness in High Performance Computing (H-PIPE)

0709438

Building Human Infrastructure: A Pipeline for Minority Preparedness in High Computing (H-PIPE)

Patricia Nava

The Distributed Computing Lab (DCL) was established with NSF funding (NSF-CISE EIA-0325024). H-PIPE will utilize the DCL as a hub for educational, research and outreach activities that, in concert, result in more individuals trained in the design, operation and applications of high-performance computers. Support of this program will enhance a proven model to recruit, support, and develop talent in underrepresented minorities that are trained in the CISE related fields. The research effort will use the student-constructed 40-CPU (20-node) Computer cluster that is currently at the core of the DCL and utilize it in three interleaved efforts: (1) to perform enhanced outreach to minority and female high-school students; (2) to provide further enrichment of educational activities in CISE; and (3) to involve students in exciting relevant research and use the DCL as a catalyst to promote multi-disciplinary collaborations that can benefit from this form of computing. H-PIPE will afford students the opportunity to carry out hands-on projects in Artificial Neural Networks, Biomedical Engineering, Operating Systems, Computer Network Protocols and Computer Architecture.